Implantable Stimulator

9360936 Fang This SBIR Phase I project will seek to determine the technical feasibility of an implantable nerve stimulator for bladder control in patients with paralysis. During the period of the award the system requirements would be established for clinical application, conceptual design for the implantable stimulator and its external controller, the waveform generator, and the output driver. Successful completion of the Phase I project will provide the basis for identifying the technical challenges for Phase II prototype device development. ***